Conference: Analysis of Partial Differential Equations arising in Physics - A satellite conference of the 2026 International Congress of Mathematicians

This award supports participation in the conference "Analysis of Partial Differential Equations arising in Physics" held July 13-16, 2026 at Rutgers University in New Brunswick, NJ. The conference is a satellite event for the 2026 International Congress of Mathematicians taking place July 2026 in Philadelphia, PA. By leveraging the excellent research environment of the northeastern United States, the event gathers global experts and early-career researchers to study the equations governing fluid dynamics, general relativity, and quantum mechanics, thereby reinforcing U.S. leadership in mathematical physics and fostering international collaboration. This project promotes the progress of science by creating a forum for specialized communities to share insights, address complex challenges, and support the development of the next generation of researchers in fields critical to our understanding of nature.

The goal of the conference is to bring together researchers in general relativity, fluid dynamics, and quantum mechanics who are unified by their use of hyperbolic and dispersive partial differential equations (PDE). While these fields often advance independently, this forum facilitates the cross-pollination of techniques necessary to address fundamental challenges in mathematical physics. The technical scope of the meeting focuses on five key pillars: Asymptotic behavior and the long-term stability of coherent structures like solitons and black holes; Singularity formation and stability in semi-linear and quasi-linear PDE; Rigorous theories of turbulence in fluid and wave equations; Inverse problems and the scattering of waves; and Propagation of randomness and invariant measures for hyperbolic and dispersive differential equations. Information about the conference is available at https://sites.math.rutgers.edu/~mv715/icm26sat.